Molecular Genetics of Ribosomal RNA

We will use genetic approaches to study the structure, function and assembly of ribosomal RNA in E. coli. The main feature of the method is to use antibiotic-resistance mutations in 16S and 23S rRNA as genetic markers. This allows us to use both random and site-directed mutagenesis approaches. The construction of inducible rRNA operons allows us to identify lethal mutations, as well. Mutations that confer a variety of phenotypes, including temperature-sensitive, cold-sensitive, "downs," nulls, Ram, suppressors, etc. will be isolated and localized by marker rescue and DNA sequencing. Second site revertants will also be sought, in an effort to identify long-range structural and functional interactions involving ribosomal RNA.